Computer Data Acquisition for Experiments in Modern Geometrical Optics

To provide an up to date, relevant education in Applied Optics, it is essential for students to have hands-on experience with computer data acquisition and analysis. This project will provide such an experience in the very first Applied Optics lab which the students will take. A personal computer will be interfaced with a linear photodiode array to measure the spatial extent of images and the image irradiance. With this equipment, students will be able to perform experiments in radiometry. The student will also be able to measure the transverse aberration of an image. The linear array and computer combination will make it possible to scan an image to determine a point spread function and then the modulation transfer function. This unique and straightforward way of determining the modulation transfer function of an optical system should greatly clarify this important subject. This equipment will also make it possible to modernize the classic pinhole camera. The University will match the award with an equal amount of funds.